SBIR Phase I: NANOSTRUCTURED 3D CATALYTIC COATINGS FOR HIGH-EFFICIENCY POLLUTION CONTROL AND AIR PURIFICATION

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to address the global challenge of pollution abatement and air purification which have a profound impact on the environment, health, and economy. Hundreds of billions of dollars are spent each year on emission control activities, yet air pollution costs the global economy over five trillion of dollars annually in welfare costs and is attributed to one in every eight deaths. The design and performance of current industrial catalytic air purification technologies is insufficient to treat the growing number of airborne pollutants. Finding sustainable, cost-effective solutions to this problem, and is becoming increasingly important in view of tightening regulations. The technology we propose has a high commercialization potential due to the fact that it is cost-effective, shows excellent long-term performance and potential for scalable fabrication within an existing manufacturing framework within the United States. Further, the founders of the company are inventors of the technology and have exclusive licensing of the core IP. Significantly, our demonstration of operating temperature reductions has been well-received by industry as evidenced by findings from our customer discovery effort through programs such as NSF I-Corps.

This Small Business Innovation Research (SBIR) Phase I project addresses outstanding challenges in catalytic converters, notably technical challenges associated with cold start, durability, and high cost, which can be attributed to the use of substantial amounts of platinum group metals, and reliance on the limited reserves of these metals. Through highly controlled composition and nano-, micro-, and macro- structuration, we have previously demonstrated dramatically reduced precious metal content in a catalytic decomposition of known pollutants. The research objectives of this SBIR project are to develop a scalable deposition method of these advanced catalytic materials onto industrially relevant substrates, to promote and accelerate their integration into commercial products to tackle the growing problem of air pollution and greenhouse gas emissions. The technical work will involve the synthesis of these materials and modifications to the synthetic schemes in a way that will be compatible with such large-scale deposition processes, as well as longevity, robustness, and catalytic testing. It will require building equipment for the deposition. Overcoming the technological challenges that are the subject of this SBIR Project will facilitate translation of the nanostructured materials to a broad range of catalytic applications related to pollution abatement and air purification.